CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies: The Portals Project

9616990 Honey, Margaret Education Development Center CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies: The Portal Project The Education Development Center, Inc. has been awarded $684.260 for a 24-month period to develop computational tools, with access to World Wide Web resources, to support effective learning and integration of computational processes with real-world research problems. This software consists of a suite of computer-based, Web-enabled programs for systematically documenting, examining, and offering feedback on students' project work. The goals of the project are: (1) to develop the Portal Tools; (2) to implement the tools in up to 70 schools in five states; and (3) to evaluate the impact of the tools on student learning, through case studies and analysis of student presentations and process documents.